High Energy Physics

This action would provide funds for two faculty members, one research associate and students to continue their research in elementary particle physics. They are involved in an international collaboration with physicists from ten different countries building a particle detector to be used at a new facility under construction in Hamburg, Germany. The particle detector is known by the name, Zeus. The experiments to be done will be to study the reaction products of electrons colliding with protons at the highest laboratory energies available for these processes. These studies will complement experiments at other facilities now under construction in the U.S. and abroad. The principal responsibility of the American physicists involved (from 7 institutions; 3 receiving NSF funds) is the calorimeter used to measure the energy of emerging particles. Virginia Tech has particular responsibility for the phototube bases and radiative corrections.